CT-ISG: Understanding Control Plane Security: The Method of Strong Detection

Routing protocols enable a distributed set of nodes to determine the
flow of data over important networks such as the Internet. As a
result, ensuring that nodes throughout the network properly implement
the routing-protocol is of paramount importance. The routing-protocols
in these networks are distributed, and nodes operate independently,
but must cooperate and "play by the rules" of the routing protocol
if the network is to function correctly and efficiently. Routing
protocols form the basis of what is called the "control plane" of a
networking architecture.

This project focuses on the control plane, and is seeking to further
development of a methodology for measuring the inherent security of
the control plane component of existing and future routing protocols.
The overall approach has a significant theoretical component: general
classes of routing protocols are identified and they are being
analyzed for their ability to monitor themselves. The technique of
Strong Detection is being used to reveal bounds on the kinds of errors
that these classes of routing protocols can detect, thus identifying
complexity classes of routing protocols in terms of their
self-monitoring abilities.

The work in this project contributes to an entirely new way of
evaluating the security level of a routing protocol. Strong Detection
is novel, not only in its ability to identify the existence of a
control plane attack, but also in its ability to classify the
robustness to attack of classes of routing protocols. The project will
contribute to the general area of routing security, which is necessary
to protect our networking infrastructure from deliberate or accidental
damage.